Fundamental principles of non-linear single molecular devices as building blocks for future computing technologies

Fundamental principles of non-linear single molecular devices as building blocks for future
computing technologies
This SGER proposal aims at exploring theoretical foundations for new types of
nanoelectronic single molecular devices. The major driving force for this effort is the realization
of unique electronic properties of single organic molecules that can be exploited to implement
novel elements of electronic circuitry to be used as an alternative for traditional, silicon based
CMOS technology. The main goal of this proposal is to develop computational tools and apply
them to perform device modeling and intelligent design of molecular architectures based on firstprinciples
understanding of electron transport. A series of unique molecules that exhibit specific
electronic functions such as molecular diodes, transistors and switches will be explored. Charge
transport through single molecules and molecular arrays will be investigated. The fundamental
understanding of electrical characteristics of such molecular building blocks will be used to
explore the intelligent design of molecular architectures. Simulation and prediction of electrical
behavior of molecular nanoelectronic components based on their atomic and electronic
properties will be ultimately extended to achieve the virtual integrated prototyping of molecular
devices optimization of current-voltage characteristics of specific electronic devices by
choosing the most appropriate chemical composition that has desirable electronic properties.
The proposed research program addresses the goal of NSF EMT program to explore new
capabilities for future computing technologies, thus allowing to extend the lifespan of Moore's
law beyond the lifetime of silicon technology.
Broader Impact.
The broader impact of this SGER effort will be achieved by educating science and
engineering graduates who will be the main driving force for future advances in future
computing technologies. Students involved in this project will learn a broad range of knowledge
in molecular engineering and first-principles device modeling. This project will serve to attract
brilliant minds, to train and promote young talented students with the aim to reinforce the science
and engineering workforce.
In addition to educational activities, this synergistic effort in theory/simulation will advance
our understanding the fundamental mechanisms of electron transport in molecular nanostructures
and to establish predictive structure-property relationships between molecular structure and
electrical device characteristics. This knowledge base is important for practical implementation
of the next generation of computing hardware based on molecular components aimed at
achieving lightweight, flexible circuits with low energy consumption and high density
information storage.